The Oryza BAC Library Project: A Fundamental Public Resource to Study Monocot Plant Evolution, Development, and Physiology

0208329
Wing

The long-term focus of our research is to develop and exploit the tools of genomics to make the Oryza genus the most advanced and tractable model system to study plant evolution, development, physiology and crop science in the world. The specific objectives of this proposal are to construct and distribute eleven high quality deepcoverage large insert BAC libraries for the ten genomes of Oryza (Table 1). With the
complete sequence of the A genome of rice on the horizon, having convenient public access to the other nine genomes of rice in the form of BAC libraries, will permit rapid advances in both basic and applied research for the most important food crop in the world.

The genus/species, genome type and genome coverage are listed below:

O. rufipogon - AA, 5X
O. glaberrima - AA, 5X
O. punctata - BB, 10X
O. officinalis - CC, 10X
O. minuta - BBCC, 10X
O. australiensis - DD, 10X
O. latifolia - CCDD, 10X
O. schlechteri - HHKK, 10X
O. ridleyi - HHJJ, 10X
O. brachyantha - FF, 10X
O. granulata - GG, 10X